U.S.-Germany Cooperative Research: The Study of Helicity Structure of Photoreactions on Deuterium and Helium-3

0124689
Weller
This award supports Henry Weller and students from Duke in a collaboration with Hans Arends of the Institute for Nuclear Physics at the University of Mainz, Germany. The project will focus on measuring the validity of the Gerasimov-Drell-Hearn sum rule for the deuteron. The low-energy part or the measurement will be performed in the US, with participation by the German group, and the high-energy part of the measurement will be performed on the Mainz Microtron in Germany. The measurements will compare the sum rules on the neutron and proton to that on the deuteron, for which both high- and low-energy measurements are required. A possible continuation of the collaboration could then work on measuring the sum rule for Helium-3. The work plan provides for extensive participation by graduate students in the international travel and research.